Conference: 2026 Membranes: Materials and Processes Gordon Research Conference and Seminar

Chemical separations often account for about 35% of manufacturing costs in the chemicals, pharmaceutical, and food industries. Membrane-based separation methods are energy efficient and avoid waste, which together can reduce costs of chemical separations. This award will provide partial funding for the 2026 Gordon Research Conference (GRC) and associated Gordon Research Seminar (GRS) entitled “Membranes: Materials and Processes.” The award will support US-based graduate students and junior researchers to attend this GRC and GRS. The attendees will benefit from interaction with leading domestic and international researchers, practitioners, and educators in membrane technology. The award will help train the next generation of membrane scientists and engineers and maintain US competitiveness in chemical manufacturing.

Membranes are already used widely in applications such as desalination, gas separation, and batteries. Ongoing developments in membrane separations have the potential to revolutionize the chemical manufacturing industry. The GRC and GRS will highlight the following topics: resource recovery and the manufacturing of critical materials; artificial intelligence and machine learning for membrane design and discovery; membranes for electrochemical processes; remediation of forever chemical contaminants; and next-generation membranes to enable the energy transition. The GRC and GRS will be held in Colby-Sawyer College in New London, New Hampshire in August 2026. Attending the meetings will expose students and postdoctoral fellows to current research, state-of-the-art methodologies, and impactful applications. By presenting their work and engaging in rigorous academic discourse with leading experts, they will gain invaluable feedback to help forge new research directions.